Partial Support of Annual Directory of Student Science Training Programs for High Ability Precollege Students

The Directory of Student Science Training Programs for High Ability Precollege Students informs students, teachers, counselors, and parents of opportunities for student participation in the United States and in some countries abroad. The Directory also helps program directors of national programs by providing them with needed national publicity, reaching students that their budgets would not permit them to reach on their own. The Directory was started by Science Service in 1982, when the National Science Foundation ceased publishing its own Directory. The Directory has grown from 54 listings the first year to 612 for the 1989 edition. The distribution has grown from a printing 35,000 the first year to 77,000 for the 1989 edition. The costs have thus greatly increased. In 1986, Science Service was awarded a grant of $60,000 over a three- year period in support of the publication while alternative sources of continuing support could be developed. Advertising was chosen as the best possibility and successfully started, with 18.9% of the current (1989) Directory being covered by paid advertising. The interest shown by advertisers and potential advertisers suggests that the Directory could come close to the break-even point in three to five years. A three-year grant of $90,000 over a three-year period is therefore requested in partial support of the Directory while paid advertising support is developed.